Improving Statistical Education Through Visualization

This project is based on the premise that for many learners, statistical concepts can be conveyed visually and that computers can be used in new ways to motivate, interest and engage students. Learning modules will be developed that use high quality color computer graphics to help learners visualize statistical concepts at the level of a second semester introductory statistics class. Each learning module will consist of computer software, student learning exercises, and instructor notes. The software will be used by instructors to support them in teaching concepts and by students to reinforce classroom instruction by active self-discovery learning. The software modules will enhance deductive learning and promote inductive learning through experimentation using scenarios, animation, and real data. Modules will use easily created data with known characteristics or real, relevant databases. Written exercises will involve students in active learning by posing questions that students must investigate using the software modules. Students who use the proposed learning modules should: have more confidence in using statistical techniques and computers; have strengthened belief in the importance of statistics; perform better on defined learning tasks; and be more adept at critical thinking and original problem-solving.